Symposium BB: Electrical, Optical, and Magnetic Properties of Organic Solid-State Materials V"; November 29 - December 3, 1999; Boston, MA.

9909157
Pachavis

At the 1999 MRS Fall Meeting in Boston, MA (November 29 - December 3) a symposium will be held on "Electrical, Optical, and Magnetic Properties of Organic Solid-State Materials V" (Symposium BB). The goal of the symposium is to facilitate interdisciplinary interactions and information exchange within a broad spectrum of researchers with interests on electronic, optical and magnetic propeties of organic structures for photonics and electronics will be highlighted. The NSF funds will be used to support the attendance of young Americans scientists.

There are emerging opportunities related to the design, synthesis, physical properties, processing, and device applications of organic materials. Great potential for technological advances exist primarily in the area of communications that are based on solid state materials. This is a strategic area of emphasis at NSF.